Algorithms Based on Partial Obstruction Sets

Until recently, one could expect the proof that a problem has a polynomial time solution to include an algorithm that could be used to obtain the solution. Now, however, a number of problems, including many from the VLSI domain, are known to have low degree polynomial-time decision algorithms, yet the algorithms themselves are not known. These algorithms depend on the existence of a finite but unknown number of forbidden graphs (an obstruction set). This research examines the question of whether full knowledge of an obstruction set is really required to solve problems in practice. This research focuses on the gate matrix layout problem. Since some obstruction sets for the problem are known, the feasibility of designing algorithms that utilize only part of those sets of graphs will be studied. This will include identification of those obstructions likely to be found in practice and the design and implementation of algorithms to test for containment of those graphs. It also examines which techniques used to isolate the ostructions for gate matrix layout can be applied to other layout permutation problems as well.